Northeast Probability Seminar

The goal of the conference is to have talks by both well established and promising probabilists. We intend to continue to invite women to speak and to seek speakers from other underrepresented groups. The meetings will have four featured talks, two on Thursday morning and two on Friday morning. Thursday and Friday afternoons will be set aside for informal sessions where participants will be encouraged to give ten-minute presentations of their recent work or to discuss open problems. The proposed areas of coverage for this year's conference include Brownian motion, local times, Markov chains and processes, random structures and algorithms, particle systems, and stochastic analysis.

Specialized mathematical meetings like this are very important. They give people an opportunity to exchange ideas and try out new theories. They also give young people an opportunity to question experienced mathematicians. Regional meetings are especially important because it is easy to follow up on significant conversations. They also foster the sense of belonging to a group of active researchers---in this case the Northeast Probability group